Computational Theory and Methods for Finding Multiple Solutions to Differential Systems

Dr. Zhou, the principal investigator, proposes to develop computational
theory and methods for finding multiple unstable solutions to PDE
(eigen) systems. Multiple unstable solutions, lowly or highly, singly or
multiply excited, to many nonlinear systems have been observed with very
different instabilities, maneuverabilities and configurations. Hence they
imply a variety of applications. When multi-bodies (particles, molecules,
species, etc.) are involved in a system, they may interact with each other
in many different ways, such as strongly coupled vs. weakly coupled,
cooperative vs. non-cooperative, definite vs. strongly indefinite,
variational vs. non-variational, etc. Thus mathematically systems can be
classified into many different types. Based on the results obtained from the
previous NSF funded project and several successful preliminary
investigations, the PI proposes a new game theory methodology that treats
each body in a system as a player. According to the interactions among all
bodies, two-level local optimization methods will be developed to solve
proposed problems and mathematical justification of those methods will be
established. Several important model problems in Bose-Einstein condensates,
nonlinear optics, biology and non-Darcian/Newtonian fluids/materials are
proposed to solve for testing the new theory and methods. The instability
index of unstable solutions is important information for application and
thus will be analyzed.

Unstable solutions appear only in a short time period, but may have much
higher performance index. They used to be considered too hard to catch by
traditional technologies or numerical algorithms and thus too difficult to
apply. Thanks to new technologies (synchrotronic, laser), scientists are now
able to induce or reach various unstable solutions and search for NEW
applications, in particular, in system design and control of EMERGENCY
machineries for MISSION CRITICAL SITUATIONS. So far, understanding of such
solutions is still quite limited and analytic solutions are too difficult to
obtain. Thus, development of efficient and reliable numerical methods to
solve such problems for multiple solutions in an order becomes very
important to both research and applications. However, there is no theory in
literature to devise such a method. The outcome of this project will (1)
greatly enhance understanding of unstable solutions by mathematical
characterizations and lay a solid foundation for future study, (2) provide
efficient and reliable algorithms to compute multiple solutions so that
people can compare and then select the best one, and (3) promote new
applications with new solution configurations.